Mathematical Sciences: Saddlepoint Methods and Likelihood

Saddlepoint methods have been particularly useful in the approximation of joint and conditional parametric density functions. A theory of predictive inference has drawn heavily on these constructions of approximate likelihoods; and this theory will continue to be developed under this award. However, the class of potential applications for saddlepoint methods is much broader, and the principal focus for this research is this expansion into several new areas. These include multivariate testing problems where the null distribution of the likelihood ratio statistics can be written in product Dirichlet form, also finite (unequal probability) sampling schemes and resampling schemes, and response analysis for non-linear stochastic systems prevalent in the engineering literature.